Native Americans in Marine Science

Caldwell/99-12135
This award provides renewed funding for a program called "Native Americans in Marine Science" or NAMS. The program recruits Native American and Native Alaskan students for undergraduate programs at the University of Oregon. The long-term goal of this program is to increase the number of minority students who complete degrees in science, continue their studies in graduate school, and enter the scientific work force. The program was initiated in 1991 and has provided the financial support and mentoring necessary for 87 students to continue their higher education and gain research experience. The award provides continued funding to support 20 students for an additional year.